EarthCube Domain Workshop: Data Facilities

Data facilities provide a key resource in the pursuit of innovative scientific research by
aggregating, preserving, and disseminating large quantities of data sets, including highly
complex petabyte scale data to more simple metadata catalogs. The proposed workshop provides
a forum for leaders from these facilities, regardless of scale, type or format of data, to
gather and discuss commonalities and collaborative solutions to the increasing challenges
associated with providing data access for researchers. In addition, this workshop will act
as a key end-user Assembly Group during the EarthCube Test Enterprise Governance process to
identify decision making processes and governance models that are most applicable to the geoscience
data facilities.

A steering committee of experts from across the Geosciences, including Atmosphere, Oceans,
and Earth Sciences will act to identify key participants and create a quality agenda. Social
scientists will be utilized to ensure developmental evaluation and learning loops are incorporated
into the agenda; this includes the construction of key scenarios and exercises for discussion
and breakout groups.

Results of the meeting will include a set of common and unique requirements and challenges
associated with the communication, collaboration, interoperability, and governance structures
required to ensure that the capabilities and opportunities of existing and emerging NSF/GEO
facilities are incorporated into the EarthCube concept.